Generating Simulation Models from the Relational Data Base of a Manufacturing Modeling Environment

This planning grant, submitted in conjunction with the Minority Research Initiation program of the NSF, will provide for support to develop a research proposal to address a Simulated Modelling Process (SMP). SMP is useful because general purpose simulation languages required in simulation models of many manufacturing systems do not adequately represent the complexity and detail found in such systems.